Teacher Training Institute at Hofstra

This Leadership Activities project will provide enhancement and professional development experiences for 20 exemplary high school mathematics teachers from the Nassau County, New York area. The overall goals of the multiyear project involve the updating and deepening of the participants' mathematical backgrounds and teaching methodology, the networking of the participants, the conduct of in-service workshops by the participants in their home schools, the dissemination of the project materials and results to nearby school systems, and the investigation of the modelistic approach within a carefully planned documentation, assessment and evaluation effort. The second year of the project will involve 40 additional exemplary teachers.